Systems and Software Tools for High Performance Computing

9401151 Davis This award provides support for the acquisition of a distributed memory parallel computer together with support hardware for scientific visualization and storage of large image databases. The proposed system will be an experimental facility designed as a testbed for operating system and algorithm development, and will consequently run a wide range of experimental operating systems. The research topics to be explored span a broad range of applied research in high performance computing in three general categories: programming tools for HPC systems, parallel algorithms for scientific computing, and symbolic coding. A key component of the research program is the development of scalable parallel data structure and algorithms for the representation and analysis of global data sets arising from environmental science problems.